SBIR Phase II: Redox Polymer Catalysts for Electrochemical Synthesis of Hydrogen Peroxide

0078383
Gopal
This Small Business Innovation Research Phase II project will investigate the use of
redox catalyst electrodes for the synthesis of hydrogen peroxide through electrochemical
regeneration of the redox catalyst. In the Phase I research, catalysts were developed and
their short-term stability for peroxide synthesis was successfully demonstrated. Flow cell
operation with 10 cm2 electrode cells showed the preparation of hydrogen peroxide in
acidic condition (1N H2SO4) at 60% current efficiency and up to 2% in peroxide
concentration. However, Phase I work indicated poor catalytic current with oxygen for
these redox systems, as well as an upper limit for hydrogen peroxide concentration (2%).
Phase II research effort will be directed towards improving the catalytic effect of these
redox catalysts through changes in preparative procedures, electrode structure, and
fabrication technique. The electrodes will be tested and optimized for peroxide synthesis
using oxygen/air and almost pure water (pH adjusted, if necessary) using flow cell
experiments. The electrodes will be tested for long-tem stability (500 hours). Larger
electrodes (100cm2 ) will be fabricated using the best composite electrode for long-term
stability testing and process optimization. Commercialization of the process will be
carried out with a Phase III partner upon the successful completion of Phase II work.
Potential Commercial Application of the Research
Hydrogen peroxide is a clean oxidant, which reacts to form water as its reaction product.
It is therefore environmentally acceptable in many industries. The market for hydrogen
peroxide is expected to grow by almost 10% for the next few years. New technology
(synthesis of hydrogen peroxide from water and air) described in this Phase II proposal
could be implemented for various applications. These areas include wastewater treatment, on-site generation (for industrial and consumer application such laundry bleach etc.), as well as commercial peroxide production.